Development of Methods to Characterize Tissues by Measuring Ultrasonic Properties of Tissues

The purpose of this basic engineering research is to produce an instrument that will very accurately measure the velocity of some waves in tissue. Ultrasound has become a useful clinical tool, especially in the formation of images of internal organs. However, the accuracy of the formation of images of internal organs depends upon the information placed into the computer to interpret the measurement. One major reason that the ultrasound imaging pictures are not yet very clear is that the tissue data placed in the computer and used by the computer to form the image is not sufficiently detailed or accurate. This research is developing new instrumentation to gain more accurate and detailed data which can then be placed in the computer for interpretive purposes. In addition this research will develop the means to use data for forming a better physical understanding of tissue and its physical properties.